In-situ Synchrotron X-ray Diffraction Study of Quartz Deformation

This award is funded under the American Recovery and Reinvestment Act of
2009 (Public Law 111-5).

Non-technical explanation:
The ability to predict the response of crystalline solids to forces that
cause them to change shape, or in other words deform, is important in many
areas including materials engineering, metallurgy and geoscience and has
applications to problems ranging from metals forming to mountain building.
This research project will investigate the deformation behavior of
quartzite, a common quartz-bearing rock, at the temperatures and pressures
relevant to the earth's interior. We will use a combination of in-situ
synchrotron x-ray diffraction, computer based simulations and sample
analysis to study the behavior of specific groups of crystals within the
rock which will improve our understanding of how the behavior of groups of
crystals within a rock integrate to produce the overall behavior of the
rock. Our results will be most useful in understanding geological
processes such as those that produce mountains or determine where in
Earth's crust, earthquakes occur. However, because the deformation
mechanisms that allow quartz crystals to deform are the same as those that
operate in metals and ceramics, we anticipate that our results will also
shed light on more general questions that have applications to a range of
engineering problems. The majority of the funding requested for this
project will support the education of young scientists including
undergraduate, graduate and post-graduate scholars by supporting them as
they participate in cutting edge research.

Technical explanation:
This project will use in-situ synchrotron x-ray diffraction from high
pressure, high temperature deformation experiments on quartz combined with
elastic plastic self consistent modeling and careful examination of sample
microstructures to learn about the distribution of stress between grain
populations during deformation. The experiments are designed to allow us
to examine the relative roles of various deformation mechanisms and
grain-grain interactions in generating the overall rheological behavior of
polycrystalline quartz. In addition, the combination of microstructural
analysis with synchrotron diffraction observations will add a great deal
to the understanding and interpretation of diffraction data gathered from
high pressure deformation experiments. Therefore the results from this
study will have implications for and applications to deformation studies
of other earth materials made with large volume high pressure apparatus,
as well as ultrahigh pressure deformation studies in the diamond anvil
cell (DAC) that utilize the same type of diffraction data. The results
will also have implications for neutron and x-ray diffraction studies of
engineering ceramics and metals.